U.S.-Japan Joint Seminar: Manipulation of Matter by Coherent Light

9603206 Bucksbaum This award supports the participation of American scientists in a U.S.-Japan seminar on the Manipulation of Matter by Coherent Light to be held in Gunma, Japan from September 1- 5, 1997. The co-organizers are Professors Philip H. Bucksbaum of the University of Michigan and Kohzo Hakuta of the University of Electro-Communications in Japan. This seminar will bring together leading researchers in the areas of laser-atom cooling, atom optics, atomic coherent control, and ultrafast laser-atom processes, to study emerging connections between these fields. Topics to be discussed include Bose-Einstein condensation of cold atoms, quantum computing, microlasers, and entangled wavepackets. %%% The manipulation of matter by coherent light is one of the leading fields of activity in laser-matter studies, and new advances are being stimulated by new technologies. The recent success in observing Bose-Einstein condensation in a weakly interacting gas confirmed for the first time predictions made by Einstein and Bose almost a century ago. With a U.S. concentration on gas phase studies and a Japanese focus on condensed matter and quantum optics, the exchange of ideas and data with Japanese experts in this field will enable U.S. participants to advance their own work, and will set the stage for future collaborative projects. ***